Causal Supports for Early Word Learning

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

By the time children enter preschool, most are phenomenal word learners, adding new words to their vocabulary every single day. It is clear, however, that not all words are learned with equal ease. What factors determine whether, and how rapidly, a particular word becomes an accurate and lasting part of a child's vocabulary? With support from the National Science Foundation, Dr. Amy Booth will conduct research designed to answer this question. Specifically, she will investigate the role of richly meaningful conceptual information in facilitating early word learning. In her studies, young children will be taught made-up names for objects and animals that they have never seen before. Children will later be tested on how quickly and how well they learned the new words. Both their ability to understand the new words and to produce them on their own will be assessed. Dr. Booth's work has already demonstrated that 3- to 4-year-old children are particularly likely to learn and remember new words when they refer to objects with known causal (as opposed to superficially perceptual) properties. Moving forward, Dr. Booth will work towards explaining the mechanisms underlying this effect in a socioeconomically diverse group of children. She will also attempt to specify the impact of this effect across development and across a variety of natural learning environments.

Dr. Booth's project will be important both theoretically and practically. It will have implications for time-honored debates regarding the potentially special relationship between words and conceptually deep information. Moreover, by specifying the conditions that optimize the likelihood that a word will be acquired and retained, it will suggest educational strategies for maximizing the word-learning potential of young children from both advantaged and disadvantaged backgrounds. Finally, this project provides opportunities for several undergraduate and graduate students to directly participate in research, thus helping to mentor the next generation of developmental scientists.